Computational Studies of Complex Geophysical Fluids

9218819 Rothman The PI will develop and apply a number of simple models for the simulation of complex geophysical fluids. Phenomena of interest cover a wide range of problems in multiphase flow, including flow through porous media, phase separation and hydrodynamics, sedimentation, convection, non-Newtonian fluids, and granular flow. ***